From Computer Data to Human Knowledge: A Cognitive Approach to Knowlege Discovery and Data Mining

This research is being done in conjunction with IIS-9732562, which is being
performed by Dorrit Billman in the Psychology Department at Georgia
Institute of Technology. The research is concerned with intelligent
decision aids that can be developed by data mining techniques. Experience
has determined that such systems can learn accurate models, but that
experts in areas where those models are used in decision aids are often
reluctant to trust them because they do not, for instance, use the same
tests intermediate conclusions or abstractions that the experts have grown
to trust. Or they do not use certain factors at all that experts feel to
be relevant. Experts also want models that are stable under small changes
in the data being analyzed. Psychologists have discovered factors that
simplify the learning, understanding, and communication of category and
process information by humans. This research seeks to explore these
psychological principles in light of the output of existing KDD algorithms
and then go on to develop and evaluate new KDD algorithms that will provide
output that is easy for people to learn , use, and communicate to others.
With the results of this research, it should be possible to make such
decision aids more "human centered", so that they will be used more often
and more effectively in practice.

http://www.ics.uci.edu/~pazzani